Symposium on Phytochemical Ecology: Taipei, December 1988

This award supports participation of eleven US scientists in a joint seminar with Taiwan on phytochemical ecology (to include allelochemicals, mycotoxins, and insect pheromones and allomones) and its relevance to agriculture and human health. Plant allelochemicals are secondary plant metabolites that play an important role in plant-plant, plant-microorganism, and plant-insect interaction, both beneficially and detrimentally. Allelopathic chemicals also act as important ecological factors which influence plant dominance, succession, climax vegetation, and crop productivity. Mycotoxins, another focus of this conference, are a variety of highly toxic, secondary metabolites produced by fungi. Mycotoxins have been recognized as an important class of hazardous substances in the human food chain. Pheromones are semiochemicals produced by an animal to communicate with another individual of the same species. These compounds play a significant role in agriculture as population regulators. This symposium will discuss research in these areas and investigate opportunities for collaborative research.